Enhancement of General Chemistry through a Microcomputer Laboratory for Tutorial Work and Data Analysis

A microcomputer laboratory consisting of eight microcomputers and associated software is being used in the general chemistry progam at Delta State University for tutorial work and data analysis. Computer assisted instruction, in this setting, is being used to provide challenging experiences for advanced students and remedial work for those with educational deficiencies.